Multiscale numerical modeling of multiphysics systems

This project focuses on multiscale and stochastic numerical methods
for complex multiphysics problems. A parallel computational framework
for modeling various multiscale applications will be developed. The
models of interest will be based on coupling the Stokes or the
Navier-Stokes equations with single phase or multiphase Darcy flow.
The flow system will be coupled with reactive transport. The research
approach is based on a multiblock domain decomposition methodology.
The simulation domain is a union of subdomains (blocks). Each block
is associated with a physical, mathematical, and numerical
model. Physically meaningful interface conditions are imposed on the
discrete level via mortar finite elements. The formulation provides
great flexibility for multiphysics and multinumerics
couplings. Furthermore, this domain decomposition approach, combined
with coarse scale mortar elements, provides a multiscale approximation
and an efficient way to solve the coarse grid problem in parallel.
Uncertainty in the physical characteristics is modeled via stochastic
partial differential equations. Approximation in probability space is
achieved using stochastic finite element and collocation methods. The
main components of the research will be 1) development of multiscale
mathematical models, identifying appropriate interface conditions, and
analysis of the well-posedness of the models; 2) novel discretization
techniques for stochastic partial differential equations; 3) a
posteriori error estimates and adaptive mesh refinement algorithms in
physical and stochastic space; and (4) efficient parallel domain
decomposition solvers and preconditioners.

The research methodology can be applied for the design, analysis, and
implementation of computational methods for a large class of problems
arising in science and engineering applications. The project will
emphasize accurate, robust, and efficient numerical methods for
problems exhibiting behavior on a wide range of scales in space and
time. The research also aims to quantify uncertainty in the prediction
due to to uncertainty in the input parameters through stochastic
modeling. The research results will be applied to two main
application areas: couplings of surface water with groundwater flows
and modeling complex multiscale processes occurring in the
inflammatory response in the human body. Computer modeling of
subsurface and surface flow and transport has a major economic impact
on environmental and energy industries. Due to the proximity of
groundwater and surface water systems, contamination of rivers, lakes,
and wetlands can lead to contamination of aquifers and
vice-versa. Simulating these complex interactions is a major
computational challenge. Acute inflammation, which occurs in response
to trauma or infection, may lead to a systemic inflammation or
sepsis. Sepsis frequently leads to organ failure and death (with more
that 500,000 fatal cases per year in the U.S.). Effective treatments
are lacking, due to the complexity of the process. Mathematical and
computer modeling is becoming a more common tool in the effort to gain
insight of the dynamics and spatial characteristics of the
inflammatory process.